Geometric Variational Problems and Rearrangement Inequalities

Abstract

Award: DMS-0308040
Principal Investigator: Almut Burchard

Two sets of problems are proposed, one related with elastic
curves, and the other with rearrangement inequalities. The first
set of problems concerns the dynamics of an elastic curve moving
in three-dimensional space, under forces determined by its
curvature and subject to the constraint that it is inextensible.
The main question is whether solutions starting from sufficiently
smooth initial data exist for all time, or whether they may
become singular in finite time. For the long-time evolution of
an infinite curve, solitary waves are expected to play an
important role. The boundary value problem for the tension will
be studied in detail, with the goal of obtaining sharp bounds for
the tension in terms of the position and velocity of the curve.
In the second set of problems, the PI proposes to settle a
conjectured quantitative version of the classical rearrangement
inequality for the Coulomb energy. Furthermore, the cases of
equality in the Brascamp-Lieb-Luttinger inequality for multiple
integrals will be investigated. In addition, the PI participates
in two interdisciplinary collaborations, on Statistical Network
Calculus and its applications to data traffic (with colleagues
from Computer Science and Systems Engineering), and on the
clustering of proteins on membranes within polarized cells (with
colleagues from Biology).

The elastic curve equations described above provide a simple
example of a class of nonlinear wave equations with geometric
forces and geometric constraints. The analytic difficulties
encountered in this problem, and the techniques used to overcome
them, are expected to be relevant for more complex mechanical
systems with geometric forces. While the work is geometrically
motivated, the dynamics of elastic wires are clearly relevant to
structural questions in Mechanical Engineering. The basic
well-posedness questions addressed here could have implications
for the convergence of numerical solution schemes. Rearrangement
inequalities are among the few geometric tools for minimizing
nonlinear, non-convex functionals. The proposed work strives to
sharpen those tools and extend their applicability. Implications
include the stability of symmetric galaxy configurations and
other dynamical stability problems. A notable contribution of
the applied collaborations is that they expose researchers in
Biology and Engineering to the everyday use of simple, but
rigorous Mathematics. The Network Calculus results center on
questions of admission control and service guarantees in large
data networks. The biological work has implication for the
mechanics of protein sorting, which is crucial to the function of
the cell at a basic level.